State-Based Network to Develop Science and Mathematics Indicators

This is a continuation of an award made to the Council of Chief State School Officers (CCSSO) in FY 1986. In the first year, an inventory was conducted in the states to identify the information they now collect on the dimensions and quality of mathematics and science education, using the framework being developed for such indicators by the National Research Council, and applying a data-collection "shuttle" procedure to describe how each state defines and collects the information. In the second year, the information compiled through the inventory will be analyzed with reference to emerging models for indicators of math/science education, and strategies and priorities will be set for the development of math/science indicators in each state that will bring states toward a standard model of important, technically-acceptable information. At the end of the first year's work, a major on-site review was made of the project. It was the unanimous recommendation of the reviewing officials that the project is meritorious and should be continued for at least another year.